CAREER: Interfacial Fluid Mechanics: Well-posedness and Stability

Free interfaces in fluids and their consequences are paramount across countless natural and industrial processes. These interfaces are not passive lines but active regions where unique physical phenomena unfold, fundamentally altering how fluids move and interact compared to bulk, single-phase flows. The analysis of the partial differential equations (PDE) underlying interfacial dynamics is particularly challenging since the PDE governing the fluid motion in the bulk, which present serious challenges even in fixed domains, must be solved in a domain whose boundary is dynamically coupled with the evolution of the fluid. As a consequence, interfacial problems are highly nonlocal and nonlinear with implicit nonlinearities. This project seeks to advance our rigorous understanding of interfacial fluid mechanics through studying prototypical problems of diverse characteristics for both inviscid and viscous fluids. The research plan is vertically integrated into the education plan through new courses and research opportunities for undergraduate students, graduate students, and other early-career researchers. These include summer research projects for undergraduate students and the establishment of a biannual PDE workshop/summer school program in collaboration with the Brin Mathematics Research Center at University of Maryland, College Park.

The investigator studies the water wave and internal wave problems for inviscid fluids, and the free boundary Stokes, Navier-Stokes, and incompressible porous media equations for viscous fluids. While short-time dynamics of these problems is fairly well understood for generic regular initial data, long-time dynamics is often limited to the vicinity of trivial solutions. An overarching goal of this project is to understand long-time dynamics near nontrivial solutions via the investigation of their stability with respect to various types of perturbations. The existence and uniqueness of nontrivial solutions is also part of the project's goals. Many of the techniques developed will be of broader interest, including fine analysis of nonlocal operators that are ubiquitous in free boundary problems.